Mathematical Sciences: CBMS Regional Conference in Mathema-tical Sciences on Topological and Probablistic Aspects of Single Orbit Orbit Dynamics: Bakersfield, CA 06/18-22/95

9414535 Haddad Dynamical Systems as a mathematical subject deals with the study of a group(or more generally a semigroup)G acting on a set X, and is subdivided into 3 distinct but interacting components: topological dynamics, when X is a topological space and G acts continuously on X; ergodic theory or measurable dynamic, when X is a measure space and G acts measurably on X; and smooth dynamics, when X is a manifold and G acts differentiably on X This CBMS conference, to be held from June 18 to June 23, 1995 in Bakersfield, California, on the campus of The California State University, entitled "TOPOLOGICAL AND PROBABILISTIC ASPECTS OF SINGLE ORBIT DYNAMICS," with main speaker Professor Benjamin Weiss of the Hebrew University in Jerusalem. The last CBMS conference dealing with the same general subject was given by Professor Hillel Furstenberg in Fargo North Dakota in 1990. Needless to say, new developments in dynamical systems have evolved since then, making the timing for a new conference appropriate. The goal of the conference is to introduce the speaker's new approach to "single orbit dynamics" to the study of dynamical systems and to explain how it relates to the various integral notions in ergodic theory and topological dynamics developed in the literature, thus leading the way to new approaches and results in the area.